Industrial/Academic Partnership for the Advancement of Science and Technology: "Partners for Terrific Science"

This proposal combines a number of goals and activities which are among those sought in projects funded under the Private Sector Partnership program. It involves industrial scientists, university faculty, experienced high school teachers as teams of presenters in workshops for 72 precollege teachers. This series of 2-three day workshops extend over two academic years. The first year focuses on applications of science and technology in local industries, and will serve primarily classroom teachers who will develop materials to use in their classrooms. In the second year the emphasis will expand to include aspects of biotechnology, molecular biology in related industries, and the participant pool will be expanded to include science coordinators and science specialists in order to have a broader impact throughout the participating school districts. From these workshops will come a continuing relationship between participants and their industrial mentors from the "focal companies." Cost Sharing by the partners will total 170% of the National Science Foundation grant.